Oriented Conducting Polymers: Solution Processing and Characterization

This proposal outlines an interdisciplinary program designed and constructed to attack an important specific problem in new materials: the achievement of higly oriented semiconducting and metallic polymers through solution processing. The program includes the following components: (I) Synthesis of Soluble Conjugated Polymers and Compatible Polymer Blends, (II) Solution Processing of Semiconducting and Metallic Polymers and of Polymer Blends, (III) Theoretical Studies of Specific Problems Underlying the Solution Processing of Conducting Polymers, and (IV) Characterization of the Highly Oriented Conducting Polymers and Polymer Blends, and Characterization of the Polymer Solutions from which they are processed. This Materials Research Group brings together an interdisciplinary set of talents and expertise to form a coherent program to attack the problem of the preparation and characterization of highly oriented semiconducting and metallic polymers through solution processing.